Mechanical Properties at the Sub-micrometer Length Scale: Multiscale Modeling and Experiments

Of particular interest in this project are the mechanical properties of metals in systems that consist of structural components whose dimensions, or the dimensions of their substructure, lie in the range of tens of nanometers to tens of micrometers. The investigators will develop experiments, models and computational platforms to pursue reliable mechanical properties and prepare maps for use in the design and analysis of such systems. Innovations include advancements in bulge testing techniques for studying submicron structures, advancements in multiscale modeling based on molecular dynamics and dislocation dynamics analyses, and development of a crystal plasticity hardening law for submicron elements.

The potential performance levels of miniaturized systems made of submicron components, such as microelectormechanical systems and lightweight metal panels for automotive and aerospace application, can lead to new performance level and energy efficiency not achievable with current materials. The outcome of this project would have major impact on these emerging technologies by providing scientific bases for designing of such systems. Additionally, this project will involve graduate and undergraduate students in mentoring primary and secondary school students through a unique outreach program. The goal is to increase students' interest in science and engineering, broaden the background of doctoral students in outreach activities, and address issues of disparity that may be underlying concerns in attracting women and minorities to doctoral research.